Technological Disaster, Resource Loss and Long Term Social Change in a Subarctic Community

Technological Disaster, Resource Loss and Long-Term Social Change in a Subarctic Community

In contrast to natural disasters, technological disasters have been found to have long-term community impacts. The present research will identify patterns of social change in a small fishing community twelve years following the Exxon Valdez oil spill. The loss of ecological, social and cultural resources will be related to patterns of community stress and change from survey and ethnographic data collected from 1989 through 2001. This research will provide an evaluation of the Conservation of Resources theoretical model of collective stress for understanding the chronic social impacts of technological disasters for renewable resource communities.